Collaborative Research: Molecular Biology for Environmental Engineers

The objective of this project is to adapt and implement a prior successful CCLI pilot project developed at the University of Cincinnati (DUE 0127279) where hands-on laboratory modules and multi-media course materials have been used to introduce teams of undergraduate engineering students to molecular biology as a screening tool to track microorganisms in the environment. The pilot project will be reproduced at four peer institutions with assessment performed both locally and a "meta-assessment" performed as an overall component of the project. An advisory board with representatives from two- and four-year undergraduate institutions, an HBCU, and the National Academy of Engineering will provide independent feedback to the team. Expected outcomes of the project include: four additional institutions offering an inquiry-based course where interdisciplinary teams of undergraduate students collaborate on open-ended group projects following the "full-cycle 16S rRNA approach"; a text book to be published by a nationally-recognized publishing house; and broad dissemination through presentations at conferences and publications in the peer-review engineering education literature. The project will include successfully bridging the gap between environmental engineering research and undergraduate instruction to integrate molecular biology tools into the day-to-day practice of environmental engineering. A two- and four-year institutions and an HBCU will participate in this project.